Support of Special Session Entitled, 'Isotopic Ratio Measurements Using SIMS' at the SIMS XI International Conference, September 1997

9714813 Hervig This award will partially support expenses for invited speakers who will present their latest analytical and theoretical results at a special session of the 11th International Conference on Secondary Ion Mass Spectrometry (SIMS). The special session is entitled "Isotopic Ratio Measurements Using SIMS", and the invited speakers will be selected from leading laboratories working in isotope geochemistry, an area of research where recent technical developments have allowed advances in precise isotope ratio measurements from microscopic samples. The special session has been added to the international SIMS conference with the intent of bringing the microanalytical expertise of the isotope geochemistry community together with interested SIMS specialists from materials science and the semiconductor industry. ***